Regularity for Fully Nonlinear Equations

PI: Yu Yuan, University of Washington
DMS-0200784

Abstract:

The theory of a priori estimates and solvability for fully nonlinear
equations with the convexity condition are well developed. While other
concrete equations like Isaacs equations from the stochastic optimal
control theory and special Lagrangian equations from calibration geometry
do not have the usual convexity condition. Only preliminary attempts were
made toward this direction in recent years. Though the complex
Monge-Ampere equations have the usual convexity condition, the
holomorphic invariance is too large. There is no theory of a priori
estimates for the complex Monge-Ampere equations with non-smooth
right hand side. This project concentrates on the following four parts. In
part one, the objective is to derive Holder a priori estimates for
finitely piecewise linear Isaacs equations by further employment of the
ideas in recent work. In part two, the attempt is to study the regularity
for general fully nonlinear elliptic equations in 3-d in the light of
recent work that any homogeneous order two solution to fully nonlinear
elliptic equation in 3-d must be linear. In part three, the purpose is to
answer whether any homogeneous order two solution to special Lagrangian
equation of dimension four or higher is trivial. In part four, the aim is
to study the Bernstein problem for complex Monge-Ampere equations.

Differential equations and differential geometry are further applications
of Newton's calculus to the investigation of laws and shapes of nature,
and even some phenomena of our real world. This project deals with some
particular equations, like Isaacs equations from optimal stochastic
control theory, special Lagrangian equations and complex Monge-Ampere
equations from differential geometry. Understanding those equations would
have impacts on not only the related mathematical fields, but also fields
outside mathematics like physics.